Participant Support for 29th Conference on Stochastic Processes and their Applications

0308986
Waymire
The 29th Conference on Stochastic Processes and their Applications will be held in Angra dos Reis, Rio de Janeiro, Brazil, from August 3-9, 2003. This is an important annual conference in probability. This award will provide travel support for participants. The funds will be used primarily for junior researchers, women, and underrepresented minorities.